A Study of Nonlinear Magneto-Rheological Tuned Vibration Absorbers for Reducing Floor Vibrations

A STUbY -OP St-MA11 -ACTIVE MAGNETO-RHEOLOGICAL
DEVICES FOR CONTROLLING FLOOR VIBRATIONS

ABSTRACT

Excessive levels of floor vibrations due to human activities such as walkhg, jumping, and dancing have been the topic of several research studies. Unfortunately, there has only been a limited success in finding corrective measures to this problem.

This study- investigates the effectiveness of magneto-rheological (MR) devices such as MR dampers, and TVA's for reducing floor vibrations. Methodologies and guidelines will be developed for the design of these devices based on the dynamic characteristics of different floor systems. A floor test will be constructed at the Virginia Tech Structures and Materials Research Laboratory and a series of dynamic tests will be performed to provide experimental verifications of the analvtical results.

Several industries will cooperate and provide technical and financial assistance to the project principal investigators. This study will be performed by the Civil Engineering, Mechanical Engineering, and Architecture Departments of Virginia